Presidential Young Investigator Award

Emphasis of the research for this award will be on the dynamic modeling and optimization of continuous cultures. On-line optical density and glucose measurements will be used to develop steady-state mathematical models of microbial growth. Subsequent step response and feedback identification experiments are to be implemented in order to obtain a mathematical model that best describes the dynamics of a continuous culture. Saccharomyces cerevisiae grown anaerobically is to be used as a model organism. Adaptive optimization algorithms are to be used with the above mathematical model to guide further experimentation. The success of the algorithms in ensuring operation at an optimal dilution rate is to be tested. Continuous cultures will be subjected to dilution rate, temperature, pH and feed glucose concentration changes to see whether the algorithm succeeds in optimizing the process. Optical density and glucose concentration in the continuous culture are to be the measured variables. Plasmid stability studies using periodic temperature variations in shake flask and continuous cultures of E. coli are also to be carried out.